IX-th International Conference on Multiple Criteria DecisionMaking (MCDM), George Mason University, August 5 - 8, 1990

This grant is to provide partial support for the IXth International Conference on Multiple Criteria Decision Making, which will be held August 5-8, 1990. The theme of the conference is "Multiple Criteria Decision Making and Support Systems at the Interface of Industry, Business and Government. The program features a collection of sessions on theoretical advances and applications in decision theory, modeling of uncertainty and imprecision financial planning, computer aided interactive decision support, expert knowledge acquisition, and other topics. The conference will provide an important forum for interactions among researchers in the field of multiple criteria decision making.